Interagency Agreement between Library of Congress (Fedlink) and National Science Foundation KACST Program

Description: Through the Directorate of Information Systems and Technical Services (ISTS) the King Abdulaziz City for Science and Technology (KACST) offers researchers in the Kingdom literature search of worldwide data via various commercial and governmental data bases. This Interagency Agreement allows KACST to participate in the Library of Congress FEDLINK group membership contract. Through this agreement KACST will be the beneficiary of substantial discount costs per connect hour. FEDLINK will provide administrative services to facilitate procurement, installation and training of library support and information retrieval services. Funding: This activity is funded by the Kingdom of Saudi Arabia through the U.S./Saudi Arabia Joint Commission. No U.S. appropriated funds are used.